Explicit Determination of System Parameters for Upgrading and Enhancing Water Distribution Systems

Water distribution systems are greatly in need of evaluation, repair, retrofitting and rehabilitation in order to continue to be serviceable to the communities. Reliable engineering methods are needed to determine the existing conditions and to predict the remaining useful life of the systems. In order to evaluate the distribution systems this project will develop hydraulic analysis models to determine the design characteristics based on the various pressures and flow requirements. The mathematical model will enable a decision maker to select and evaluate various modifications to the existing systems. Parameters to be evaluated are: pipe sizes, storage facilities, and pumping requirements. With this data base an engineer will be able to evaluate the best method for rehabilitation or repair. The researcher is qualified to perform this investigation. The project is recommended for an award. This is the first year of a three year award with an increment of $54,953.